2002 Gordon Research Conference in Chemical Oceanography

ABSTRACT

OCE-0225014

A major objective of the Gordon Conference in Chemical Oceanography is to bring together every one or two years leading members of the scientific community, along with post doctoral fellows and graduate students, to discuss new and exciting research in marine chemistry within an informal setting. In 2002, the Gordon Conference in Chemical Oceanography will be held at the Queen's College in Oxford, United Kingdom to discuss research activities in the following areas: (1) gases in the ocean; (2) Redfield ratios; (3) ocean carbon sequestration; (4) metal isotopes in ocean cycles; (5) trace metal uptake by marine biota; (6) marine calcification; (7) carbonate dissolution; (8) chemical transformations by bacteria; and (9) novel organic proxies. The Gordon Conference has become recognized as an important venue to exchange ideas in the interdisciplinary field of marine chemistry and forge new scientific alliances. Having the Gordon Conference in the United Kingdom will enable U.S. scientists to discover what new research activities are being carried out in Europe and facilitate international collaborations. For this reason the National Science Foundation, along with the Gordon Research Conference, will co-sponsor the participation of 20 graduate students and 33 invited speakers in the 2002 Gordon Conference in Chemical Oceanography.